Completion and Publication of Flora de la Region del Parque Nacional Amboro, Bolivia

This project will bring to conclusion 12 years of field and
herbarium work on the flora of the region of Parque Nacional Amboro in the
department of Santa Cruz, Bolivia. The Park and surrounding areas constitute
one of the most species-rich national park areas in the world, with 3000
species of vascular plants documented at this time and a total of over 3500
expected for this flora. This will be the only floristic treatment for an
area of this size in Bolivia, the poorest-known floristically of tropical
American countries, and will be indispensable for making natural resource
and conservation decisions. This project will finish the
processing and identification of over 4000 collections previously made by
the PI and collaborators in the area of Parque Nacional Amboro. Dissemination of results will include production of a book to be printed in Bolivia, and construction of a fully web-searchable database on species treatments.